Prestressed Kevlar/E-Glass Structural System

This project will investigate the basic properties of a fiber glass reinforced plastic to be used as a possible construction material for bridges and other types of structures. Fatigue studies will be conducted by Lehigh University.